1991 Corpus Christi Pre-Freshman Engineering Program

For the fifth summer, Del Mar College will be hosting the Corpus Christi Prefreshman Engineering Program (PREP). This eight-week, commuter program has been a Young Scholars site since the summer of 1989. 120 new students and 30 returnees will be admitted to the program. These students will be entering 8th and 9th graders who are interested in studying Mathematics, Engineering and Computer Science. Participants will attend classes/labs for four days a week and will have field trips most Fridays to local industries and R&D centers. A typical class day begins with a scientist/engineer speaker for the purpose of career orientation. This hour is followed by an hour each in Logic, Computer Science (Pascal), Engineering (with an emphasis on projects to teach physical principles) and Problem Solving.